A Contour Based Monte Carlo Algorithm with Applications to Computational Statistics and Bioinformatics

Simulation from complex systems, such as proteins, neural networks, and
spin-glasses, is one of the most challenging problems in scientific
computation. The energy landscape of these systems can be characterized
by a multitude of local energy minima separated by high energy
barriers. In simulation from these systems, the conventional Markov
chain Monte Carlo algorithms, such as the Metropolis-Hastings algorithm
and the Gibbs sampler, tend to get trapped in one of local energy
minima indefinitely, rendering the simulation ineffective.
The goal of this research is to develop an effective Monte Carlo
algorithm for simulation from complex systems, and to apply the new
algorithm to some computational problems in statistics and
bioinformatics, including molecular structure prediction, phylogeny
estimation, neural network training, combinatorial optimization,
optimal design, highest posterior density (HPD) interval construction,
model selection, and others. The preliminary results show that the
contour Monte Carlo algorithm, which is proposed in this research,
will potentially play a leading role in stochastic optimization in
place of other algorithms, such as simulated annealing and genetic
algorithms.

In this research algorithms are developed that are potentially useful
in many fields such as biology, engineering, and the social sciences.
These algorithms are powerful in identifying best solutions to
optimization problems in applied sciences. Students, researchers, and
users of statistics, such as computational biologists and computer
scientists, will benefit from this research.